Aylesbury Comparative Experiment: Analysis of Wind Tunnel Results

This project will complete an international experiment started about seven years ago, in which four physical models of the Aylesbury Experimental Building in U.K. was tested in eleven wind tunnels from around the world. Ten more facilities have now agreed to conduct additional tests, and all these calibration tests will provide for the first time, a comprehensive evaluation of the various techniques for physically modeling low rise structures, and give estimates of the accuracy of predicting the various parameters used in developing building codes for such buildings.